Dissertation Research: Zooarchaeological Analysis of Subsistence and Social Organization at the Middle to Late Woodland Transition

Whelan Under the direction of Dr. Mary Whelan, Ms. Margot Neverett will collect data for her doctoral dissertation. She will continue her analysis of abundant faunal material collected during the excavation of the Gast Farm site which is located on an alluvial fan at the edge of the Mississippi River in southeastern Iowa. Four seasons of fieldwork have been conducted at the site and these reveal two distinct periods of occupation both dating to the Woodland period. The shift from the earlier Havana to later Weaver phases took place approximately 2,000 years ago. Spatially discrete remains of both Havana and Weaver villages have been discovered. The sites have yielded abundant faunal as well as other cultural remains and in her NSF supported research Ms. Neverett will focus on the former. She will travel to La Crosse Wisconsin and Springfield Illinois to examine comparative collections which will permit detailed identification of the Gast Village faunal remains. With the data collected she will then reconstruct subsistence patterns and determine how food was obtained and distributed in each time period. The Gast Village Site forms part of the Midwestern Hopewell complex. Hopewell has fascinated archaeologists in part because the large mounds which Hopewell people constructed and the exotic trade objects they obtained provide evidence for one of the earliest complex highly-organized societies in North America. Of equal interest is the decline of the Hopewell peoples because over a relatively short period of time social organization reverted to a less complex level. No new earthworks were constructed and exotic trade items became rare. Archaeologists have speculated on why this happened and have invoked a number of causes such as environmental change. Ms. Neverett will approach this question through an examination of social relations within villages on each side of the transition and faunal remains provide a convenient approach. This research is important for several reasons. It will provide data of interest to many archaeologists. It will increase our understanding of how complex societies arise and decline, and assist in the training of a promising young scientist.